Trust and Security for the Semantic Web

This research investigates distributed trust management as an
alternative to traditional authentication and access control schemes
in dynamic and pen computing environments such as multiagent systems,
web services and pervasive computing. Distributed trust management
handles security with techniques used in human societies, where people
are judged on their abilities, assets, relationships and reputations.
Authorization decisions are made through the application of relevant
security and trust policies, expressed in a high-level declarative
language. The policies define rules and constraints on agents (human
or software) and the actions they can take on objects in terms of
their credentials and properties. This work extends the principles of
trust management with deontic notions of rights, obligations, and
prohibitions. An ontology grounded in a semantic language (e.g., RDF,
DAML or OWL) is used to represent security information constituting
credentials, policies, beliefs, and proofs as well as relevant
domain-specific properties to characterize the agents, actions and
objects. An important results will be a better understanding of how
the semantic web can address the critical issues of security, trust
and privacy in distributed open environments. The new concepts and
techniques will be evaluated and demonstrated through the
implementation of prototype tools and applications